Biomaterial Composites

This is a fundamental engineering research project to characterize the material properties of a calcium- phosphate/collagen composite. A better fundamental understanding of this type of material, which may be very similar to biological calcium-phosphate/collagen, could accelerate the development of coatings for dental and prosthetic implants.